CDS&E: Agentic AI Framework for Autonomous Reaction-Transport Mechanism Discovery in Electrochemical Systems

Electrochemical technologies can turn carbon dioxide, water, and other simple molecules into fuels and useful chemicals using electricity. When the electricity comes from renewable energy, these processes may help reduce carbon emissions from chemical manufacturing. However, it is still difficult to design efficient electrochemical reactors. The chemical reactions inside these systems are complex and not fully understood. This project will develop new artificial intelligence tools to help engineers study these reactions. The tools will examine experimental data and suggest possible reaction pathways. They will test these ideas using physics-based models. The system will also suggest new experiments that help scientists learn how the reactions work. By combining machine learning with chemical models, the project will accelerate research on electrochemical technologies. The project will also support education and workforce development. Undergraduate and graduate students will take part in research that combines chemical engineering and artificial intelligence. Results from the research will be used in courses at Purdue University, such as data science and chemical reaction engineering. These courses will show students how modern computational tools can be used to study scientific problems.

This project will develop an agent-based artificial intelligence framework for discovering electrochemical reaction mechanisms from experimental data. The reactions of interest – such as carbon dioxide reduction, formic acid oxidation, nitrate reduction, and oxygen reduction – utilize small molecules important for energy conversion and the manufacture of building-block chemicals. The framework combines large language models with mechanistic modeling, optimization, and experimental design. The research will have three objectives. First, the project will develop approaches that generate and evaluate candidate reaction mechanisms using information from prior scientific knowledge and experimental observations. These mechanisms will be formulated as mechanistic models and tested against experimental data to identify explanations that are both consistent with observations and physically meaningful. Second, the project will investigate how reaction mechanisms interact with transport processes that occur in electrochemical systems, such as the movement of chemical species and charged particles near electrode surfaces. New modeling approaches will be developed to study how these processes influence observed reaction behavior and to estimate relevant physical parameters from experimental measurements. Third, the project will develop optimal experimental design methods to distinguish between competing mechanistic hypotheses. Information-theoretic criteria will guide the selection of experimental conditions that maximize the ability to identify correct reaction mechanisms, while interpretable explanations will help experimental researchers understand why specific experiments are recommended. The resulting framework will combine data analysis, mechanistic modeling, and experimental guidance to support systematic discovery of electrochemical reaction mechanisms. The methods will be evaluated using representative electrochemical datasets and experimental measurements.